String Theory Conference; Berkeley, California, May 24-29, 1993

The conference "Strings 1993" will bring together leading physicists who work at the newest frontier in elementary- particle physics. To be held in Berkeley, California, May 24- 29, 1993, it is the latest in a series of annual workshops recognized internationally as the major meetings in String Theory and related topics. The participants are among the leading workers in the field. The conference will be open to every participant who applies. Conferences like this one are an important stimulus to further progress in the field.